A Basic Research Program for EVS Education

The National Science Foundation program, Ethics and Values Studies in Science, Technology and Society, has always had a dual focus on research and education. This project will help to guide educational efforts by preparing five review articles in three broad areas: (1) goals and objectives of EVS education, (2) effective methods of EVS education, and (3) appropriate roles for public education and non-governmental organizations, including private educational institutions and citizen action groups. With guidance from an advisory board, the authors will develop articles surveying the results of existing research for ethics and values education and draw implications regarding needed research and the development of educational programs. The authors will meet to coordinate their efforts, and the final drafts will provide the basis for a workshop at the sixth National Technological Literacy Conference in February 1991. Participants at the workshop will respond to these findings; and the papers and workshop outcomes will be published in a special issue of the Bulletin of Science, Technology and Society. Further presentations and publications are also planned. This study is being coordinated by a very well-qualified investigator who has identified appropriate advisory board members and authors. Oversight and dissemination plans are exceptionally good; institutional support is good. The projects important implications for future curriculum development. Support is recommended.